Presidential Young Investigator Award: Concurrent VLSI Architecture

Dally This research focuses on the evaluation of the prototype MDP components, the assembly of a single-board (64-processor) J- Machine system, the revision of the MDP component design as required, and the assembly of a 16-board (1024-processor) J- Machine system. The Concurrent Smalltalk and the Concurrent Aggregates programming systems are being installed on the J- Machine and some small applications are being demonstrated.